ITR: Spectral Boundary Element Algorithms for Interfacial Dynamics in Viscous Steady and Oscillatory Flows

This proposal focuses on improvements in spectral boundary element method for simulation of multiphase flows. These include drops and cells suspended in Newtonian and non-Newtonian fluids that may be subjected to steady and oscillatory flows. A convincing case was made that the computational time will be significantly reduced using the proposed algorithm. The proposed educational activities are well integrated into the planned research.